U.S.- U.K. Cooperative Research: The Chemistry of Larger Membrane Clusters

0000427
Barton

This three-year award supports U.S.-U.K. collaborative research on reactions of small molecules with metallaboranes and studies of macropolyhedral boranes. The project involves Lawrence Barton and a graduate student from the University of Missouri and John D. Kennedy and a graduate student from the University of Leeds. The research addresses synthetic, structural, behavioral and spectroscopic studies of the reactions of small molecules with metallaboranes and the formation of macropolyhedral clusters, i.e. species larger than the typically accepted limit of 12-vertix icosahedron.

The U.S. investigator brings to this collaboration expertise in polyborane and metallapolyborane chemistry and x-ray diffraction measurements. This is complemented by the U.K. investigator's expertise in the field of polyborane clusters and in NMR spectroscopy. Much of the NMR joint work will take place in the Leeds laboratory. The project will advance understanding of metallaborane clusters and may result in compounds with very novel properties.